Presidential Young Investigator Award

The major area of research of this grant is wave scattering from rough surfaces with emphasis on numerical studies of rough surface scattering models with the objective of developing a surface scattering model that accurately predicts acoustic wave scattering, first from the ocean surface and later from the ocean bottom. Ultimately, what is needed is a model that will work for the most general type of boundary condition and that can be used for electromagnetic waves as well as acoustic and optical waves. This is a very difficult problem which researchers have been working on for decades. It is only with the recent introduction of high-speed computers and workstations that a solution has become practicable. In particular investigation into such problems as the detection of ship wakes and the estimation of wave height and direction will be carried out. Co- investigators will include a physical oceanographer, a signal processor, a fluid dynamicist, a fluid experimentalist, and acoustician, a surface scattering modeler and are currently searching for a remote sensing experimentalist and an image processor to fill positions in the electrical engineering department.